Robust Parameter Estimation for Wireless CDMA

This project involves the design and analysis of communication receivers for direct-sequence (DS) code-division multiple-access (CDMA) in an environment consisting of multiple user interference where each signal is received at possibly different strengths and in narrowband interference (NBI) of unknown forms. This work differs from the work of many other researchers in that the initial focus here is put on the problem of parameter estimation (i.e. synchronization) rather than data detection. Traditionally synchronization has been the most difficult aspect in the design of communication receivers. An asymptotically maximum likelihood parameter estimation scheme will be used which is based on colored noise model rather than the usual white noise. This makes the proposed estimation scheme nicely suited for dealing with NBI. Once the parameter estimation problem has been thoroughly studied, the focus will turn to the problem of multiuser receiver design in the presence of NBI. The optimum receiver for such an environment has been formulated and will be investigated. Suboptimal structures that are robust to errors in needed side information will also be studied. Finally the project will address the problem of multiuser receiver design when the form of the transmitted signal is not precisely known, as when in CDMA overlay a spread transmitter may have to distort its own signal in order to avoid interfering with a nearby narrowband system..